Lie Group Actions on Symplectic Manifolds

Abstract

Award: DMS-0071625
Principal Investigator: Reyer Sjamaar

The principal investigator plans to study invariants of
Hamiltonian Lie group actions using methods from differential
topology, Lie theory and geometric invariant theory. Expected
applications include: extensions and stronger versions of
classical inequalities in matrix analysis, and new results on
moduli spaces of parabolic vector bundles. The tools to be used
include methods for handling the singularities that inevitably
arise from Hamiltonian actions (desingularization, quantization),
which were developed in a previous NSF-funded project.

This project involves graduate student participation and
collaboration with researchers at other US and Canadian
institutions. The type of question I seek to answer is: given
the singular values of two matrices (of the same size), what are
the possible singular values of their sum? In this form the
question goes back at least to H. Weyl, who early in the last
century found a partial answer and from this obtained his famous
estimates for the eigenvalues of a Laplacian. The question is
not only related to such classical spectral problems, but also to
mechanics (classical and quantum) and to the representation
theory of Lie groups. Two ramifications of the problem which I
particularly wish to pursue are versions for noncompact groups
and for the infinite-dimensional groups known as Kac-Moody
groups.